The Faddeev Knots and the Skyrme Solitons

Abstract

Award: DMS-0406446
Principal Investigator: Yisong Yang

This project is to develop a general existence theory for the
knotted solitons arising in Faddeev's quantum field theory
model. The difficult structure of the problem requires innovative
techniques and ideas beyond the well developed tools such as the
method of concentration-compactness. Recently, the PI has
collaborated with F. H. Lin on the existence of these Faddeev
knots and a series of important results have been obtained. A
notable feature in their study is that, although compactness may
fail, existence may be achieved as a consequence of two key
inequalities: the first inequality, called by them the
Substantial Inequality, ensures the existence of at least one
topological minimizer; the second inequality, giving an optimal
sublinear upper growth estimate for the Faddeev energy in terms
of the associated topological charge, implies the existence of an
infinite family of topological minimizers, hence the existence of
the Faddeev knots. This progress opens new directions for
achieving a higher level of understanding of various unsettled
aspects of the Faddeev knots, including the existence of
unit-charge unknots (ring-like solitons), existence of
high-charge knots and their stability, and transition pictures of
knots in view of their topological and energetical
characteristics. The similarity between the Faddeev energy and
the Skyrme energy may be exploited to tackle the difficult
existence problem of the Skyrme solitons. Indeed, a by-product of
the work of F. H. Lin and the PI will be a proof of the
existence of unit-charge Skyrme solitons which corrects the
flawed (but well-known) proof of M. Esteban published in 1986.
This study may also be extended to the Skyrme model in two
spatial dimensions which has applications in condensed matter
physics and cosmology. This project also suggests new directions
for the study of the existence problems of global energy
minimizers with topological characteristics in other important
related areas.

The concept of knots is of foundational importance in
science. For example, Lord Kelvin first explored the idea of
using knots to model atoms and molecules. More recently, the
concept of knots has inspired various fundamental areas,
including particle and condensed-matter physics, statistical
mechanics, cosmology, molecular biology, and synthetic chemistry.
Up until recently, mathematical work had been focused on
topological and combinatorial classifications of knots, but not
on existence. In 1995, Faddeev and Niemi started a seminal study
on the existence of knots as the soliton solutions of a quantum
field theory model known as the Faddeev model using high-power
computer simulations. The proposed work develops a mathematical
existence theory of such knots. This work will give new insight
into the mathematical structure of knots and their computer
realization.